Molecular Genetics of Insect Adenotropic Neuropeptides

The growth and reproduction of insects is controlled by hormones released from the endocrine glands. These glands are, in turn, controlled by specific neuropeptides produced in small groups of cells in the brain. Molecular genetics and DNA cloning methods will be used to investigate the control of production and the functions of one of these neuropeptides, named PTTH (prothoracicotropic hormones). The studies will be carried out using the fruitfly Drosophila, which is the organism of choice for molecular genetic studies. The idea that PTTH controls the production of molting hormone will be tested by determining the levels of PTTH and molting hormone at different developmental stages and in insects affected by mutations that perturb growth. The PTTH gene will be cloned, and synthetic PTTH derived from the cloned gene will be used in experiments to investigate how PTTH controls its target organ, the prothoracic gland, Genetic techniques will be used to disrupt the PTTH gene in order to identify all of the processes that it controls. The results of these studies promise to extend our understanding of the hormonal control of insect growth and lead to novel strategies for designing new insect control agents. In addition, they will provide a new way of investigating the basic neurohormonal mechanisms underlying control of reproduction in other organisms including man.